SCICEX Support

99010699
Hacking

This project represents an interagency agreement related to the MOA between NSF, the U.S. Navy and other agencies in support of an annual science cruise on board a U.S. Navy nuclear submarine (SCICEX). It covers the costs for the Arctic Submarine Laboratory's expenses for baseline support and data acquisition. This funding covers: Consultation with agencies and participating scientists; Development of the Science Test Plan and Operation Order; Preparation for and attendance at planning meetings; TEMPALT repair/refurbishment, re-installation; and checkout: Coordination of and participation in loadout of scientific equipment; TEMPALT de-installation; Data declassification and release.